Large Scale Geometry and Compactifications of Arithmetic Groups, Symmetric Spaces and Buildings

Symmetries have played an important role in sciences and arts
and are described in terms of group theory. Two important types of
groups are discrete groups and Lie groups.
Lie groups are closely related to homogeneous spaces.
An important class of homogeneous spaces consists of
symmetric spaces, a very distinguished class of special Riemannian
manifolds. Examples of symmetric spaces include the Euclidean spaces
and the spheres in them. Another type of symmetric spaces
is given by hyperbolic spaces, in which there are infinitely
many nonparallel lines which do not intersect with each other.
Discrete groups acting on symmetric spaces give rise to locally
symmetric spaces; for example, surfaces with constant curvature
are locally symmetric spaces.
The interplay between the topology, geometry and group theory
of discrete groups, Lie groups and locally symmetric spaces
has been intensively studied in mathematics.

In this proposal, the PI proposes to study the Novikov conjectures
for arithmetic groups using the large scale geometry and
compactifications of symmetric spaces of noncompact type.
Specifically, an important invariant of the asymptotic geometry
is the asymptotic dimension, the finiteness of which is closely
related to the Novikov conjectures. For a torsion free arithmetic
subgroup of a semisimple algebraic group,
the partial Borel-Serre compactification
of the associated symmetric space is the universal covering
of the classifying space of the arithmetic group. For applications
to the Novikov conjectures, we need a large compactification of the
partial Borel-Serre compactification. To study S-arithmetic subgroups,
a generalization of arithmetic groups, we also need compactifications
of Bruhat-Tits buildings. Compactifications of symmetric
spaces and buildings are also important for other purposes.